K Best Solutions of Combinatorial Optimization Problems

A combinatorial optimization problem is a problem in which one has to choose among a limited number of alternatives the optimal one, i.e., one which maximizes profit, or minimizes cost, etc. Although the number of alternatives is limited, it is in general too large to enumerate all of them and to compare the values measuring their benefit. Therefore, combinatorial optimization develops algorithms to find the optimal alternative without having to know all of them. In this research, this idea is extended to the case of finding not only the best, but also the first K best solutions. In a real-world situation modeled by a combinatorial optimization problem, the best solution may not be available, or the information about the 2nd, 3rd,..., and K the alternative is essential in deciding which of the alternatives should be implemented. From a theoretical point of view, the research will lead to new results regarding the solution of so-called NP-complete problems, i.e., combinatorial problems, the optimal solution of which can only be approximated rather than computed. In most of these problems, an approach will be used which computes the K best solutions of a simpler problem until the K best solution is feasible for the original problem.